Fire Science Multimedia Library

This collections project develops, as a proof-of-concept, a prototype of a Fire Science Multimedia Library (FSML). The FSML serves as both an aggregator and resource gateway for the fire science community. It also provides an information system dedicated to the collection, categorization, enhancement, and distribution of materials that will enlighten a broad audience in topics related to fire. It enables educators, students (including casual learners), researchers, and practitioners in a host of fire science and fire-related fields to access, via a prototypical Web interface, a compilation of multimedia, articles, and similar content for research and education. The project combines a fully searchable database of multimedia content with Web access and an interface that reconciles with the Core Integration effort of the NSDL initiative.
The project Governance Board defines policies that detail the purpose of the FSML and address the needs of the associated community. Librarians at WPI's Gordon Library, following policies developed by the Governance Board, oversee cataloging of objects and collections in conformity with the FSML metadata standards.